AIT (U.S.)-CCNAA (Taiwan) Cooperative Research: The Biology of Gamete Activation and Interaction in the Free Spawning Shrimp (Dendrobranchiata)

This is a three year cooperative study proposed by Dr. Wallis Clark, the University of California, Davis and Professor Ching-Ming Kuo, National Taiwan University, and Professor C.J. Chen, Tungkung Fisheries Research Laboratory. The project is supported under the AIT (U.S.)-CCNAA (Taiwan) Cooperative Science Program. This proposal plans to study the biology of gamete interaction in penaeid shrimp. The proposed study is an extension of early success with east Pacific shrimp, Sicyonia ingentis, in understanding the species specific mechanism for the reproductive success of penaeid shrimp. Dr. Clark is recognized as the foremost scientist in shrimp gamete research. The Tungkung Fisheries Laboratory is a world renowned institute for studies of the reproductive cycles of penaeid shrimp. This institute has excellent science, the facilities and the availability of the species of penaeid shrimp needed for this research. The success of this study will have a major impact on the very valuable shrimp culture industry and can lead to a greater understanding of crustacean reproduction.